The Behavior of States in Recurring Crises: Bargaining and Learning

9422561 Leng This project will investigate four pairs of nation-states which have been engaged in recurring militarized crises in the Post WW II era: the United States and the Soviet Union, India and Pakistan, Israel and Egypt, and Israel and Syria. these rivalries account for eight of the eighteen wars that occurred between 1945 and 1980, as well as three nuclear confrontations. The investigation will attempt to discover whether significant changes in influence strategies and tactics are employed from one crisis to the next. Event data from the Behavioral Correlates of war project as well as attributes of participant states, their relationship with rival states, and the structure of the international system and regional subsystem will inform the study. It will identify whether lessons are learned from preceding experiences with the same adversary, and the conditions under which more or less effective crisis management evolves. A better understanding of the "lessons" that policy makers draw from experience may provide an important step toward more effective means of managing future militarized crises. ***